Slip Rate Studies of the Garlock and Owl Lake Faults

This research is to determine the Quaternary slip rate at two sites along the Garlock fault and at one site along the Owl Lake fault, in southern California. At all three sites, channel walls on alluvial fans are left-laterally offset several tens of meters. Photogrammetry and trench excavation techniques will be used. Dating of events will be done by a number of techniques depending on material uncovered in the excavations. The results of these projects will provide information useful for evaluating the seismic hazard posed by the Garlock fault, as well as for constraining tectonic models of the region surrounding the Garlock fault. This research is a component of the National Earthquake Hazard Reduction Program.